An Integrated Task Approach to Expert Systems for Fault Diagnosis

The proposed work is a novel approach to designing automated control mechanisms that use not only plant sensors but also product quality to activate and adjust these control mechanisms. The overall objective is to develop an expert system framework based on the integration of computational strategies for these two tasks. The system will finally be tested on real industrial chemical process installations. Technological improvements and enhanced data collection methods have made chemical plants more operationally complex and have provided a large amount of information for a plant operator to interpret. Potential benefits exist in increasing the role of process control computers to aid the operator in diagnosing equipment failures, instrumentation problems and process abnormalities. Knowledge-based approaches can capture an important layer of human problem solving which is present in the operation of chemical plants. An expert system can potentially make available, at all times, a known level of knowledge and decision-making ability concerning the operation of the plant and therefore, can function as an intelligent consultant to the operator. The PIs plan to build upon previous experience in other areas (medicine and nuclear power plants) to develop a knowledge- based operator assist system that mirrors the human expert's approach to the problem. This includes modelling uncertainty, i.e. processing qualitative knowledge as well as quantitative algorithm development.